Antarctic Automatic Weather Station Program: 1989-1992

This is a project to maintain and augment as necessary, the network of twenty-eight automatic weather stations established on the antarctic continent and on several surrounding islands. These weather stations measure surface wind, pressure, temperature, humidity, and in some instances other atmospheric variables, and report these via satellite to a number of ground stations. The data are used for operational weather forecasting in support of the United States Antarctic Program, for climatological records, and for research purposes. The AWS network, which began as a small-scale program in 1980, has been extremely reliable and has proven indispensable for both forecasting and research purposes.